ITR: Large Scale Quantum Mechanical Simulations of Nanomechanics

EIA-0221916
Menon, Madhu
University of Kentucky

TITLE: ITR Large Scale Quantum Mechanical Simulations of Nonomechanics

Large scale quantum mechanical simulations of nanomechanics of carbon
nanotubes involving atoms in excess of 10,000 is underway using a
collaborative effort involving material and computer
scientists. Parallel software tools are being developed to accomplish
this. The tools are based on a novel pipelined, parallel architecture
designed to harness grid computing. The goal of the simulations is to
study the potential benefits of nanomechanical applications of carbon
nanotubes and use the results to guide experimental investigations.